Solar and Heliospheric Studies with Antarctic Cosmic Ray Observations

This project will continue the operation of the cosmic ray neutron detectors that are already located at McMurdo and South Pole, Antarctica. It is expected that this project will continue through the next solar maximum. The scientific goals of the project are: 1) To elucidate the nature of long-term variations and North-South asymmetries of solar activity. 2) To investigate the acceleration, coronal transport and interplanetary transport of energetic solar particles. 3) To better understand the three-dimensional structure of interplanetary magnetic turbulence. 4) To reach an improved understanding of the solar modulation of galactic cosmic rays.